CPA-CPL: The Reduction Simplification Engine

Improving programmer productivity is a crucial challenge,
especially with the emergence of multi- and many-core processors.
High level mathematical equations serve as declarative specifications
for a large class of compute- and data- intensive parts of programs.
The expressivity of such equations is greatly enhanced when users are allowed to specify collective operations called "reductions:"
associative and commutative operators applied to sets of values.
Another common feature of such equational programs is "reuse:" at different points in a set, the same intermediate value is (re)- computed or used. Certain extremely effective program optimizations are possible when equational programs have both reductions and reuse.
These optimizations yield new equations with lower computational complexity (e.g., a quadratic time equation can be transformed into one with linear complexity). This project investigates how to perform these simplifications automatically and optimally. The PIs will develop and deploy a tool called Reduction Simplification Engine (RSE) that implements such optimizations techniques. Traditional compiler optimizations simply seek a few percentage points of performance gains, at best a small, constant factor. On the other hand, the optimizations performed by the RSE have significantly more benefits since they reduce the asymptotic complexity of the program.